Digital Government: Data Confidentiality, Data Quality and Data Integration For Federal Databases: Foundations to Software Prototypes

EIA-0131884
Alan Karr
National Institute of Statistical Sciences

Digital Government: Data Confidentiality, Data Quality, and Data Integration for Federal Databases: Foundations to Software Prototypes

This award will support research in data confidentiality, data quality, and data integration. Prototypes will be built which can scale to operate on large sets of Federally held data. Researchers will partner with several large Federal Government statistical agencies. This topic is of particular importance given the balance of these agencies must strive for, in terms of their dual missions to collect and keep private confidential data, while at the same time making that data accessible for research and policy issues. This grant will support a multi-disciplinary multi-institution team, with participants from five universities, one non-profit, and one national laboratory. The disciplines represented include computer science, statistical science, and systems engineering.